Engineering Research Equipment Grant: MTS Test System for Engineering Research

An MTS material test system will be acquired for a large number of research projects concerning automotive structural components using high strength sheet steels, fracture and fatigue mechanism of adhesively bonded joints, characterization of cyclic delamination growth in fibrous laminated tough composites, positron annihilation studies of fatigue cycling damage, study on the constitutive properties of rocks, fracture studies